Acquistion of Instrumentation for Stress Effects on the Electrical Properties of Group III-Nitride Modulation Doped Heterostructures

A Helium gas hydrostatic pressure apparatus with electrical and optical
access and a Kulicke and Soffa wire bonder will be acquired to investigate
piezoelectric constants in III-nitrides. The bonder is needed to attach
metallic wires for electrical access to the semiconductor for conductance
measurements. This instrumentation will nicely complement our existing
effort funded by NSF, which deals specifically with the polarization issues
in nitrides. The effort will be supported by our strong in house nitride
growth effort with MBE and MOCVD. Prof. Nathan of the University of
Minnesota, with whom we will collaborate, has already conducted these sorts
of experiments in nitrides. Initial experiments of resistivity vs. stress
on un-gated Hall bars have already been conducted. The resistivity exhibits
slow long term drifts (time constants of order 100 to 1000 seconds. Similar
effects observed earlier in GaAs have been ascribed to a defect center
associated with shallow donors called the DX center. However, the effect in
GaN is more complex, but it is reminiscent of the type of persistent
photoconductivity observed in GaAs in the early stages of development.
Clearly trapping effects will have to be separated from the piezoelectric
effects. Such a study is crucial to the practical application electronic
nitride devices.
The requested instrument consists of
1. Helium gas hydrostatic pressure apparatus with electrical and optical
access, which will be purchased from Unipress, Poland. ($121,749)
Wire bonder which will be purchased from Kulicke & Soffa (model 4524 -
$20,092.50)

Hadis Morkoc
Virginia Commonwealth University
Department of Electrical Engineering and Physics Department
601 W. Main Street
P. O. Box 843072
Richmond, VA 23284-3072